Northwest Alliance for Access to Science, Technology, Engineering, and Mathematics

Abstract

The University of Washington (UW) requests funding for the Northwest Alliance for Access
to Science, Technology, Engineering and Mathematics (STEM) to increase the quantity and
quality of people with disabilities in STEM careers.
Intellectual Merit and Qualifications of Partners
The lead agency is the UW's award-winning DO-IT (Disabilities, Opportunities, Internetworking
and Technology) program, which has conducted successful NSF PPD projects since 1992.
Regional site teams at the two largest STEM research institutions in the State of Washington, the
UW and Washington State University (WSU), will collaborate with K-12 and postsecondary
schools, employers, and leading STEM research institutions in neighboring states - the
University of Idaho, the University of Oregon, Oregon State University, and the University of
Alaska in Anchorage and Fairbanks. The project will partner with ENTRY POINT! to place STEM
postsecondary students with disabilities in paid internships. It will collaborate with MESA
(Mathematics, Engineering, Science Achievement) adapting for students with disabilities the
hands-on science activities and teacher training strategies it uses with racial/ethnic minority and
female students. The Alliance builds on established collaborations and brings together practices
that have proven successful individually, to create a unique, comprehensive set of interventions.
Objectives and examples of interventions include:
1. The Northwest Alliance will increase the number of students with disabilities pursuing
STEM academic programs and careers. Interventions: Motivational college/career transition
and STEM fairs for precollege students and STEM academic/career activities for college
students that identify participants for the AccessSTEM Team in objective 2 interventions.
2. The Alliance will provide on-going support and encourage high school and college
students with disabilities who show interest and aptitude in STEM with peer and
mentor interaction, work experiences, and other activities as they transition to college,
graduate school, and employment. Interventions: Students join the AccessSTEM Team to
engage in an on-line community, mentoring, fields trips, research, paid internships, and other
activities to assure their success in STEM careers and promote the success of others.
3. The Alliance will provide precollege educators and staff with strategies, tools and
support to create more inclusive programs for students with disabilities, where they are
encouraged to pursue STEM studies and careers. Interventions: Training and curriculum
materials through established networks of MESA, Educational Services Districts, teacher
training programs, and professional organizations; provide educators with opportunities to
work with students who have disabilities.
4. The Alliance will help STEM postsecondary faculty, support staff, counselors, and
employers fully include students with disabilities in their courses and programs and create
accessible facilities and electronic resources. Interventions: Opportunities for faculty to
receive training and work with students with disabilities in research; assistance in making
facilities, equipment, distance learning, and Web pages accessible.
Each intervention is associated with measurables that provide evidence of effectiveness. The
National Center on Postsecondary Educational Supports (NCSPES) will evaluate project
outcomes and impacts, conduct research on factors that promote success for students with
disabilities, describe replication models, and help disseminate results.
Broader Impacts Resulting from the Northwest Alliance
Collaborations with MESA and other programs will broaden the participation of racial/ethnic
minorities and females with disabilities in STEM. Wide distribution of a replication model, curriculum
materials, and other project products and creation of a searchable Knowledge Base on the project
Web site will enhance scientific and technological understanding and maximize project impact.
Project outcomes will benefit society by making STEM opportunities available to all citizens and
increasing the number of STEM professionals and leaders who have disabilities.